Field Theory Approach to Radiative Corrections to Atomic Energy Levels and to Radiative Transitions (Physics)

Many-body QED calculations on atomic systems will be carried out using a Green's function technique. Radiative corrections will be treated perturbatively for low Z atoms. The zeroth order approximation to be used is the Dirac-Fock approximation. Analytical approximations will be obtained using perturbation theory, but the final results must be obtained by numerical computations.